ICES: Small: Collaborative Research: Selling to Networked Markets

Modern marketplaces, enabled by recent advances in information
technology, are becoming ever more complex, dynamic and
interconnected. Customers are increasingly more informed about the
choices available to them and are thus able to make better decisions.
For firms, this presents both opportunities and challenges. On the
positive side, the firm has a bigger than ever array of tools at its
disposal that enable it to better sell to its customers. Such tools
are both computational (pricing algorithms, customer targeting data,
social networking information) and economical (dynamic mechanisms) in
nature. The challenging aspect for the firm is that modern technology
also allows consumers to easily learn the opinions of fellow customers
and to be strategic in their decision-making. Having such strategic
and networked customers is not necessarily a net negative for the
firm, but it certainly makes the firm's problem of how to sell its
products a more complex one.

This project aims to develop a framework for understanding how to
sell goods in markets that are fundamentally dynamic and
interconnected. The project will research what mechanisms are revenue-optimal
(or near-optimal, while being simple and computationally tractable) in
dynamic settings where customers can learn from each other. The PIs will
study the effect of network learning on the firm's behavior and
whether it forces the firm to share some of the costs associated with
consumer learning. The project will also focus on how the social
networkstructure affects the optimal mechanism and will try to
understand whether such network learning effects lead to lower (or
higher) revenue for the firm and aggregate consumer welfare.

Fundamental research in the dynamics of networked markets provides
deeper knowledge to a broad audience that includes firms, consumer
groups and regulators. Curriculum development at the interface of
operations research, information systems and computer science will
benefit from this research experience.